MRI: Acquisition of Computational Facilities for Michigan Tech's Computational Science and Engineering Program

EIA-9871133 Seidel, Steven R. Freidrich, Craig R. Michigan Technological University MRI: Acquisition of Computational Facilities for Michigan Tech's Computational Science and Engineering Program In this project the Computational Science and Engineering (CS&E) will share a new computational facility to advance research in their individual fields, to provide interdisciplinary training in computationally intensive methods and to offer instruction to CS&E students and to students in other graduate degree programs. The computational equipment acquired in this project will also be available for use in the summer programs Michigan Technological University provides for women and minorities. The proposed computational facility consists of a Sun Microsystems HPC 6000 Server with 8 processors, over 2 gigabytes of memory and 1000 gigabytes of disk storage, network connection hardware to assure high speed accessibility to all users, and software to support scientific and engineering computation. The processors in this system can be used as stand-alone, high performance computer engines or together as a parallel computer. This computational system will run all the software systems and codes developed for the Sun systems on campus, so users will be able to make immediate use of the new facility.